Conference and Workshop on HIV in the Environment, November 1997, Pittsburgh, PA

9707129 Casson This is an award to provide support for a conference and workshop to discuss progress that has been made in assessing the survival of the Human Immunodeficiency Virus (HIV) when subjected to environmental stress in wastewater collection systems and treatment processes and to identify any further research needs associated with this matter. Investigators and co-investigators who have conducted and are conducting research on this and related topics with support from the National Science Foundation and others will present their findings for the purpose of discussion, critical review and identification of any further research needs on issues associated with the survival of the HIV when subjected to environmental stress beyond those addressed by current and past awards. Results of this conference and workshop are expected to provide guidance for conduct of further research on issues involving survival and fate of the Human Immunodeficiency Virus (HIV) under various environmental conditions. Conference participation is expected to include research personnel from the National Institutes of Health, the United States Public Health Service, the Environmental Protection Agency and other Federal agencies. The conference and workshop will be held at the University of Pittsburgh. ***